Enhanced Earthquake Simulator

This project upgrades an already existing laboratory for earthquake study. The laboratory improvement includes the addition of a controller that adds the capability of simulating a real earthquake on a shaking table. The improvement of the earthquake lab permits students to study structures and their behavior under real earthquake conditions. The major piece of equipment supported by this award is an MTS Systems 469.11 three variable controller. This award is being matched by an equal sum from the grantee.